Algebraic Methods in Systems Theory

0072383
Rosenthal

Mathematically, convolutional codes can be viewed as linear systems over
a finite field. The study of these codes requires a good understanding of
the algebraic representation of linear systems. The proposed project
therefore addresses a number of issues in mathematical systems theory and
in coding theory. The main objectives of the proposal are: 1. New
methods for constructing convolutional codes with a large free distance
and a relatively small degree. 2. New techniques to tackle the decoding
problem of convolutional codes in an algebraic manner. 3. An
investigation of the class of low density parity check convolutional codes
which constitutes a natural generalization of the class of low density parity
check codes. For this project it is the ultimate goal to algebraically
construct low density parity check convolutional codes whose encoding
and decoding complexity is `near linear' and whose performance is `near
capacity'.

Convolutional codes are used in the data transmission of many
communication systems. Applications range from airborne satellite
transmission systems to terrestrial telephone lines. Most pictures
transmitted from deep space involve in one way or another some encoding
with a convolutional code. It is the goal of the proposed research to
construct new powerful convolutional codes which can be efficiently
encoded and decoded. Having such new codes would have several
benefits. First and for all it would allow the construction of smaller and
more energy efficient transmission devices which are still capable of doing
reliable data communication. The research project will necessitate a
mathematical investigation into the algebraic structure of convolutional
codes. As it was outlined in the proposal this mathematical research could
also lead to a new cryptographic protocol.